Mathematical Sciences: First International Workshop on the Numerical Solution of Markov Chains, Raleigh, North CarolinaJanuary 8-10, 1990

This project will support the First International Workshop on the Numerical Solution of Markov Chains to be held January 8 - 10, 1990 at North Carolina State University. The workshop will be organized by Professor William Stewart. The purpose of the workshop is to bring together applied probabilists, numerical analysts, and system modelers (including computer scientists and computer engineers) in order to improve communication among the three groups, to minimize unnecessary duplication of effort, to identify long-term research objectives, to inform researchers in one area about the work in progress in other areas, and to exchange recent research results. Topics will include applications, matrix generation techniques, stochastic Petri nets, computation of stationary probability vectors, sensitivity analysis, computation of transient solutions, approximations, Markov reward models, infinite Markov chains, and parallel implementations. Speakers will include P. J. Courtois, N. M. Van Dijk, G. H. Golub, W. K. Grassmann, G. Latouche, D. Mitra, M. F. Neuts, Y. Saad, P. Schweitzer, E. Seneta, G. W. Stewart, Y. Takahashi, and K. Trivedi.